Mathematical Modeling and Computational Analysis of Cell and Tissue Movement

Othmer and Stolarska
The investigators formulate and analyze mathematical models
for signal transduction, direction sensing, and movement in
individual, non-interacting amoeboid cells and incorporate the
individual-based model in models for the collective motion of
tissue-like cellular aggregates in which the cells interact
strongly. The cellular slime mold Dictyostelium discoideum is
used as the model system because it exemplifies both the
free-ranging movement of individual cells and the collective
motion of aggregates, and because it is widely used as a model
experimental system for the study of cell movement. Current
information on movement of Dictyostelium is used in the
formulation of the mathematical models, and interaction with
different experimental groups provides feedback on the validity
of the models. Suitable computational techniques to simulate the
resulting partial differential equations are developed. What is
learned about cell and tissue movement is applicable to
Dictyostelium; it can be used in several other contexts,
including embryonic development, wound healing, angiogenesis, and
the immune system. Macroscopic descriptions based on microscopic
models of cell behavior will significantly improve large-scale
tissue simulations and expand the scope of feasible,
microscopically-accurate simulations.
In this project the investigators develop mathematical
models to help understand how signal transduction, direction
sensing, and movement in individual, non-interacting cells of
Dictyostelium discoideum, a cellular slime mold, contribute to
the collective behavior of large aggregates of cells. Directed
cell migration plays an essential role in the early development
and ongoing maintenance of most organisms. Single-cell organisms
such as bacteria find food and avoid repellents by chemotaxis,
leukocytes must detect sites of infection and move toward them in
order to ingest bacteria and cellular debris, and directed cell
migration is essential for embryonic development and wound
healing. Cell migration also occurs in many diseases; in cancer,
for instance, it leads to invasion and metastasis, and cell
adhesion and motility also have important roles there. Metastasis
is probably the major cause of death in cancer patients. The
potential impact of a better understanding of cell motion is
enormous. Not only is control of motility an important
therapeutic target for cancer treatment, but cell and tissue
engineering holds the promise to provide new tissues and organs
by in vivo tissue regeneration. The success of this hinges on
understanding the ways that cells attach to natural and
artificial extracellular matrix, as well as the characteristics
of the cell-cell interactions that eventually dictate how cells
move, proliferate and remodel into new capillaries or other types
of functional tissues.